Incorporation of Gas Chromatography-Mass Spectrometry in theUndergraduate Curriculum

This project will integrate across the curriculum the concepts, practice, and specialized uses of gas chromatography instrumentation coupled with mass selective detection (GC/MS). Chemistry, biology, and pre-professional majors at all levels will see and/or learn how to utilize the power of this analysis tool for identification and quantitation of unknown materials. New experiments that take advantage of the identification and structure elucidation capability of GC/MS will be incorporated in General Chemistry, Organic, Advanced Organic, and Advanced Inorganic courses. The GC/MS will be an essential cornerstone instrument for the laboratory component of Environmental Chemistry, a new upper division course that will be offered for the first time in 1993. In addition, a proposed middle- and high-school teacher education and outreach program that involves environmental science will be enhanced.